III: Small: Linking Relational Databases with OWL and SPARQL

The Semantic Web is an emerging technology that stipulates that the content of
each Internet web site provide self-describing metadata encoded using standard
graph representations, (using the OWL and RDF computer languages). In the
common Internet it is optional for web sites to provide topical descriptions of
their content. Further, the optional methods that are provided simply allow
developers to list keywords. The methods do not provide a way to detail the
meaning of those keywords, i.e. their semantics.

The goal of this project is to develop and demonstrate algorithms that
leverage the new, semantic aspects of the Internet and make it much easier
to treat multiple web sites and their underlying databases as a single
unified database. This is distinguished from the existing Internet where
a browser enables people to view documents and data, in the form of
documents, from different web sites in a single place. While the use
of Internet browsers is now endemic and trivially intuitive, creating
computer applications that process data from multiple web sites remains
a highly skilled and labor-intensive process.

This project comprises two components. The first component helps create
the Semantic Web by developing methods that automatically map existing
databases to the Semantic Web graph languages. The methods comprise data
mining techniques that discover the semantics already present, but not
explicitly encoded in relational databases and recast those semantics
in graph-based form. The second component comprises the development of
a distributed query execution environment for processing graph structured
queries, expressed in SPARQL.

The PI is an invited expert on the W3C working group on standards for
relational database to RDF translation (RDB2RDF), the subject of this
research. More information on this project can be found at
http://www.cs.utexas.edu/~miranker/SemanticWeb.html.